Mathematical Sciences: 1993 50th Anniversary Meeting 'Mathematics of Computation;' Vancouver, British Columbia, Canada, August 9-13, 1993

This project will support the participation of mathematical scientists from the United States at a conference on the Mathematics of Computation to be held August 9-13, 1993 in Vancouver, British Columbia, Canada. Survey and state-of-the-art lectures will be given in plenary sessions, as well as contributed paper sessions on such topics as the numerical solution of partial differential equations, numerical solution of ordinary differential equations, numerical solution of integral equations, numerical quadrature and cubature, special functions, numerical linear algebra, numerical solution of nonlinear equations and optimization, and computational number theory. This conference is being held in conjunction with the Joint Summer Meetings of the American Mathematical Society, Mathematical Association of America, and Canadian Mathematical Society.